Technician Support for the Long-Core Cryogenic Magnetometer Facility at the University of California, Davis

9709245 Verosub This grant provides three years of partial salary support for a technician to oversee operation and maintenance, service user requests and develop new analytical methods for the recently acquired 2-G Model 755-R long-core cryogenic magnetometer at the University of California-Davis. This is a Phase I Technician Support grant under the IF/EAR program. Support of a technician for this u-channel cryogenic magnetometer facility is intended to allow easy access to this "first-of-its-kind" instrument in the U.S. for both members of the U.S. paleomagnetic community and other geoscientists interested in environmental paleomagnetism and the secular variation of the geomagnetic field. Support of this position will also aid in the development of software to adequately treat the large volumes of high-resolution paleomagnetic data that can be easily generated with the Model 755-R. ***